Workshops to Articulate and Disseminate Research Priorities in Tropical Biology

Knowledge of tropical biota and ecosystems has expanded greatly in recent years. At the same time, the scope of tropical biology has also broadened to include social and economic dimensions of land use change and habitat loss. Tropical biologists have also started to make policy inputs to conservation and management of ecosystems. The Association for Tropical Biology (ATB), in collaboration with other organizations, has planned a process to articulate and prioritize research in tropical biology. The goals of the process are to review recent developments in tropical biology and to define priorities for future research. This workshop award will support participation of U.S. scientists, including graduate students, to attend a major international conference, the Annual Meeting of the ATB in Panama in July, 2002. This conference will be attended by natural and social scientists as well as policy makers. The participation of U.S. scientists will benefit U.S. scientists and those from tropical countries to promote scientific collaboration in the short- and long-term.